EMSW21-RTG: Research Training in Logic at Notre Dame

Notre Dame's logic group strives to train graduate students and
postdoctoral associates who have experienced many aspects of professional
life and are full members of the community of mathematicians. In particular,
students should develop a strong individual research agenda, have experience
in collaborative work with a variety of faculty and students, be able to
view their work from the perspective of mathematics as a whole, and be able
to communicate effectively with a variety of audiences. Under this award,
skills will be developed by integrating junior members into research-style
groups involving Notre Dame faculty and visiting faculty. Travel to
meetings and research discussions with faculty around the world will be
facilitated to accelerate their inclusion in the community and deepen their
perspective on their work. In many activities the connections with other
disciplines in mathematics and philosophy are explored, to increase the
breadth of the participants.